CSEDI Collaborative Research: Observational and Theoretical Constraints on the Structure and Rotation of the Inner Core

The major goals of this collaborative project are two-fold: (1) To
obtain high resolution images of inner core anisotropy, through a
proposed PASSCAL experiment; (2) To develop a geodynamic model for
the origin of the observed seismic anisotropy. The investigators
plan to deploy two linear arrays of 15 new stations in the interior
of Alaska, coded as Alaska Receiving Cross-Transects for the Inner
Core (ARCTIC). New data from earthquakes in South Sandwich Islands to
the arrays will provide critically needed lateral and depth samples
of the inner core for determining the inner core rotation and for
resolving the structure of the inner core transition zone and the
depth-dependence of inner core anisotropy and attenuation. the team
plans to develop a geodynamic model for the formation of anisotropy,
using the new and existing data as a constraint. The major objective
of the modeling is to identify and investigate physical processes,
including effects of plastic deformation, inner-core growth and
recrystallization, and anisotropy in the thermal conductivity, that
can account for the observed depth and lateral variations in
anisotropy. The developed model will serve as a physical context for
interpreting the seismic observations. Predictions of the model will
be used to calculate synthetic waveforms, which are subsequently
compared with the observations to refine the model. The new data
collected will also be used to elucidate crustal and upper mantle
structure of the Alaska interior. The north-south line from
Fairbanks to Prudhoe Bay will cross the Brooks Range in northern
Alaska, and The east-west line between Fairbanks and Nome will cover
parts of western Alaska in a known, but nearly unstudied, region of
extensional tectonics.